Conference series in geometric analysis and sub-Riemannian geometry

Abstract

Award: DMS-0548644
Principal Investigator: Jeremy Tyson, Luca Capogna and Scott Pauls

The conference "Geometric Analysis and Applications" will take
place at the University of Illinois at Urbana-Champaign in July
2006. The focus of the conference will be on recent developments
in the study of analysis and geometry in metric measure spaces
with a particular emphasis on geometric analysis, geometric
measure theory and subelliptic PDE in Carnot groups and general
sub-Riemannian manifolds. Applications of these subjects to
problems in robotics, control theory, the geometry of the visual
cortex, and digital image reconstruction will also receive
significant attention. An important aim of the conference is to
provide a forum for the exchange of ideas among researchers in a
variety of pure and applied fields and to foster new avenues for
collaboration and exchange.

The basic theme of sub-Riemannian geometry is the "geometry of
constrained motion"; it provides mathematical models for any
physical situation in which allowable motion is subject to
specific a priori geometric constraints. Historically, the roots
of the subject lie in Carnot's work on thermodynamics and
adiabatic processes, but it has progressed significantly beyond
these motivating questions to a central position in modern
nonsmooth geometric analysis, and has seen remarkable
applications in numerous areas: robotic path planning, remote
control of satellites and unmanned aerial vehicles, digital image
reconstruction and computer vision, neurobiology, and the
mathematics of finance, to name a few. The goal of the conference
is to bring together a wide spectrum of pure and applied
mathematicians with common interests in the subject of
sub-Riemannian geometry to develop new methods and techniques for
its study. Special emphasis will be placed on supporting graduate
students and junior participants, to train the next generation of
researchers in this exciting and rapidly expanding field and to
lay the foundation for a "North American" school in this area on
a par with the established centers of research in sub-Riemannian
and Carnot-Caratheodory geometry in Europe. Further information
regarding the conference can be found at
www.math.uiuc.edu/~tyson/UIUC06.html